Uncovering Novel Structure in Quantum Field Theory

This award funds the research activities of Professor Yifan Wang at New York University.

Quantum field theory is a central framework for understanding a wide range of phenomena in nature, from elementary particles to the collective behavior of matter. In many important systems, however, the constituent parts interact so strongly that standard approximation methods --- which start from a simpler system with weak interactions --- are no longer reliable. Professor Wang will develop new ways to study such systems by focusing on two closely connected ideas: symmetry and defects. Symmetry identifies features of a system that remain unchanged under certain transformations and can therefore reveal order beneath apparent complexity. Defects are localized features --- such as impurities, boundaries, or interfaces --- that interrupt an otherwise uniform system. Although defects may appear to be imperfections, they can profoundly alter a system’s behavior and serve as sensitive probes of properties that are difficult to observe directly. Recent advances have revealed a deeper connection between these ideas: defects can both encode previously hidden forms of symmetry and reveal how those symmetries shape physical behavior. Professor Wang will investigate how defect dynamics reveal the behavior of quantum systems whose components interact too strongly for standard calculations, what universal principles govern defects, and how symmetry can yield reliable and precise predictions when direct calculations are not feasible. By advancing the understanding of fundamental physical laws and developing tools applicable across several areas of physics, the project will promote the progress of science and advance the national interest. The broader impacts of this project include the development of new courses, the training and mentoring of undergraduate and graduate students, and the dissemination of research results through publications, public lectures, and outreach activities.

More technically, Professor Wang will pursue two complementary research directions. The first will investigate the algebraic and dynamical structures of defects, including defect fusion and its effective-field-theory description, the classification of defects in two-dimensional conformal field theories, and the interplay between defects and disorder. The second will examine the dynamical consequences of generalized symmetries by deriving constraints on correlation functions and scattering amplitudes, developing bootstrap methods for identifying physically realizable symmetry structures, and formulating algebraic descriptions of generalized symmetries. He will employ and further develop methods from conformal field theory, effective field theory, topological field theory, and operator algebra. The anticipated outcomes include a unified framework for understanding defects, symmetries, and strongly coupled quantum dynamics, together with new tools for extracting exact or universal information in quantum field theory. These advances will deepen the understanding of phase transitions, renormalization-group flows and other non-perturbative phenomena in high-energy, condensed-matter, and statistical physics.